SGER: Active Integrated Optical Circuits

Integrated Optical Circuits (IOCs) currently perform several operations on optical signals, and the more important functions are: switching or routing, amplitude and phase modulation, time delay and detection. In all cases, the structures are passive, and lossy, which in turn impinges on the system performance. Furthermore, couplers, interferometers and other components that make up these structures are long, up to several millimeters each. The active guide structures to be used for the proposed Active Integrated Optical Circuits will have gain or attenuation depending on the biasing condition, and thus loss is no longer an issue. Since the proposed structures are not dependent on coupling lengths, these may be made in very compact form. Furthermore, the guides are basically laser structures biased to transparency, gain or loss, and thus integration with similar laser sources is feasible. Proposed structures in the form of Ys, Xs, and crossbars may be used as switches, routing structures, and modulators, and these are to be investigated for switching speed, polarization dependence, temperature, bandwidth, current loading, and noise contribution. Several other optical integrated circuits are also possible with these active guides, but this one year exploratory research grant will confine itself to investigations of the above structures.